Log-Structured File Systems

CPU speeds are improving at a dramatic rate, while disk speeds are not. This technology shift suggests that many engineering and office applications will become so I/O-limited that they cannot benefit from further CPU improvements. Log-structure file systems will be investigated as a technique for improving the I/O performance of general-purpose file systems. In a log-structured file system, the only representation of data on disk is in the form of an append-only log. New data can be appended to a log-structured file system without seeks, even when writing unrelated small files; this potentially provides an order-of-magnitude improvement in write performance over today's file systems. When a log-strucuted file system is used in conjunction with an array of small disks (which provides high bandwidth) and a large main-memory file cache (which satisfies most read accesses), it may be possible to achieve 1000-fold improvements in I/O performance over today's systems. This project will explore implementation techniques for log-structured file systems, including log management, log wrap-around, and the interaction of the log with disk arrays and archival storage. A prototype log-structured file system will be implemented as part of the Sprite network operating system and its performance in a network file server will be measured.